Twelfth International Conference on the Application of Accelerators in Research and Industry; Denton, Texas; November 2-5, 1992

Professor Duggan will organize the Twelfth International Conference on the Application of Accelerators in Research and Industry. This conference, known throughout the world as the "Denton Conference", bring together basic research scientists together with the industrial community to discuss developments on a wide range of topics involving small accelerators. This year the NSF contribution is joint between the Divisions of Physics and Material Science.